Ninth International Bacteriophage Workshop: "Nucleic Acid- Protein Interactions in Bacteriophages", to be held in Sala-manca, Spain, from 6/28 - 7/3/93.

This workshop will be the ninth in a series of international conferences on bacteriophage biology. In earlier years, the meetings focused on temperate bacteriophages and were devoted to bacteriophage lambda. The 1993 workshop will focus on transcription, replication, DNA rearrangements and macromolecular structure. Genetic engineering continues to rely upon bacteriophage technology for gene manipulation, DNA sequencing, structural analysis, gene expression and screening. %%% This meeting deals with fundamental problems in molecular biology involving bacteriophage and their bacterial hosts. Progress in understanding these processes at the molecular level has contributed greatly to the accelerating advances in recombinant DNA research. New techniques developed in bacteriophage biology rapidly find their way into the mainstream of recombinant DNA research and into industrial applications. Without an ongoing community actively involved in basic research in phage biology, it is likely that many of these innovations would not have come about.